Research on Plasma Light Sources

9320515 Lawler Research on Atomic Transitions Probabilities for selected rare earth elements including thulium (Tm), dysprosium (Dy), and holmium (Ho)is proposed. These elements are candidates for introduction into a new generation of High Intensity Discharge (HID) lamps being developed in U.S. industrial laboratories. Advanced HID lamps have promise for improving lighting efficiency (luminous efficacy) and lighting quality (color rendering index). Lighting consumes 20 to 25% of the U.S. electrical energy output. The fundamental spectroscopic data to be measured under this proposed grant are urgently needed for modeling and diagnosing these new lamp designs. The Wisconsin Atomic Transition Probability Program will be extended to these rare earths. This program has, since its inception in 1980, continually developed and applied advanced laser and Fourier transform techniques to measure atomic transition probabilities on neutral and singly ionized elements. Efficient new techniques will be developed to deal with the very rich and complex rare earth spectra, while maintaining the precision and absolute accuracy achieved in earlier work on lighter elements. Close contact with industrial scientist will be throughout this project. ***